A Scaleable Multicast Protocol to Enable Future-Generation Large Scale Multimedia Applications

A picture is worth a thousand words, and the addition of sound and motion can breathe life into a picture.
As a result, the use of video in all kinds of multimedia applications has become an important development
in the 1990s. In particular, Video on demand (VOD) is a core technology for many important applications
such as digital libraries, distance learning, electronic commerce, entertainment, public information
systems, etc.
The simplest video delivery technique employs a dedicated stream for each service request. Obviously,
this scheme is too expensive and has been shown to have little scalability. To vastly reduce this cost, one
can leverage multicast technology to allow multiple clients to share a video stream. Unfortunately, today's
multicast technology was developed in the 80's, and was not optimized for such applications. Missing a
multicast could mean a long wait until the next multicast. This limitation has recently led to a large body
of research looking for remedies at the application level.
Application-level solutions, however, cannot address all the drawbacks, particularly traffic congestion
caused by too many multicasts. In fact, this proposal is motivated by application-level work done by
the investigator in his last NSF project (from 1998 to 2000). The achievements of that project, though
significant, were constrained by the limitation of standard multicast. Minimizing the multicast frequency
is crucial for any multicast-based applications, particularly those running on a public network such as the
Internet. Attaining this goal requires a fundamental change in the multicast concept. The investigator
proposes enabling the multicast tree to deliver the entire video to all the receivers who may subscribe to
the multicast at different times. This new capability would significantly reduce the number of multicasts
necessary, and therefore lower the network resource requirements. At first sight, this seems like a mission
impossible. But on the contrary, this can be achieved by allowing the routers on the multicast tree to
intercept and cache a video stream passing through. The data can be relayed to subsequent subscribers to
further extend the multicast tree. In this project, the investigator proposes to develop a suite of techniques
to make such an environment practical for future-generation large-scale multimedia applications.
To assess the potential of the proposed idea, the investigator has designed an initial version of his
Caching Multicast Protocol (CMP). The preliminary study indicates that this approach has the potential
to revolutionize the way in which multimedia information is disseminated. This scheme is much more
scalable and less expensive than application-level solutions. The new communication paradigm, however,
demands new research at the network level. In this project, the investigator proposes to study issues such
as cache organization, cache replacement policies, multicast routing algorithms, congestion control, client
and server protocols, etc. In addition, he will implement a prototype, consisting of CMP-capable routers,
CMP-compliant servers (sources) and CMP-compliant clients (destinations) to examine the practicality of
the proposed techniques.
The significance of this project is in advancing multicast technology to enable large-scale deployment
of multimedia applications. Although many great advances have been made in the field of information
technology, none have had as great and direct an impact on the daily lives of ordinary citizens as multime-dia
information systems. As such, the benefits of this research will reach many people in society. In terms
of education, this project will help to support three doctoral students. The investigator has a good record
of using NSF projects to train students for teaching careers. After these students graduate, they can help
to spread the CMP expertise developed from this project to their new institutions. Other graduate students
taking our advanced databases course can also benefit from this work by experimenting with various new
multicast applications on the CMP testbed. To reach out to members of communities, materials resulting
from this research will be disseminated on the investigator's research group website.